Pan-American Advanced Studies Institute on Computational Materials Science; Peru, October 2000

9979485
Harmon

This Pan American Advanced Institute (PASI) award on Computational Materials Science (CMS), jointly supported by NSF and the U.S. Department of Energy (DOE), will feature a spectrum of forefront topics in this field. CMS is one of the broadest, most rapidly evolving and technologically significant areas of science today. From its foundations in basic science, CMS branches to new materials, to processing, and to the life sciences. Due to rapid advances in computational capacity, including new algorithms, software macro-packages, and low-cost personal computers, CMS problems previously thought intractable are actively being pursued. The enhanced capabilities of CMS increasingly have an impact on the search for new materials, the improvement and design of processing techniques, and research in biological areas such as protein folding. This Institute is planned to be held in Peru, and will include senior and junior researchers from the U.S., Canada, and a number of South and Central American nations.
***